Workshop on Water Waves and Floating Bodies, Woods Hole, MA;April 10-13, 1988

A Workshop on Water Waves and Floating Bodies will be held, April 10 - 13, 1988, at the Swope Center, Marine Biological Laboratory, Woods Hole. An international community of engineers and applied mathematicians will meet with a mix of senior and junior participants from both universities and industry to exchange ideas and share in the information exchange. Area of special focus will be the current activities in large-scale computations as applied to water waves and floating bodies.